Design and Implementation of a Shared Memory Multiprocessor Database Machine

The goal of this project is to research and build a parallel input/output (I/O) system for a shared-memory multiprocessor. The main applications intended for this system are parallel database operations with a target performance of 1000 transactions per second. This project is a natural extension of work done at the University of California, Berkeley in shared-memory multiprocessor architecture (SPUR project) and database management systems (INGRES and POSTGRES). While many research results have been obtained in the area of processor and memory design by a number of research groups, considerable less effort has been directed towards the issues of I/O design. As processor speeds increase, it becomes more obvious that I/O operations constitute the bottleneck of parallel systems. Disk technology is now at the stage where it can provide cost effective high I/O bandwidth. The specific research objectives are: (1) to investigate new ways to couple large numbers of I/O devices to multiprocessors without affecting the limited memory system bandwidth; (2) to explore architectures for I/O processors; and (3) to implement hardware assists for database applications such as stable memories, string manipulation co-processors and hardware coherency and logging mechanisms. This proposal is strongly recommended for funding because: (1) the principal investigators research records are excellent and the research environment is extremely stimulating--thus there is a high chance of success; (2) there is a great need for research in the parallel processing area covered by this project and it is expected that the impact of this research will be significant.